Incremental Development of Enamel in Hominoids

Teeth comprise a significant portion of the fossil record, and thickness of dental enamel has been used as a measure to distinguish among human and ape fossils. Yet, we still do not know how thickness is determined. Enamel thickness is the result of three poorly known processes: rate of formation, length of formation time, and number of cells that are producing it. This project is a Scanning Electron Microscope (SEM) analysis of three major parameters of dental microstructure (enamel prism cross-striation repeat interval, Striae of Retzius, and pattern of enamel decussation) in great apes and humans. The measurement of these parameters will permit the reconstruction of crown formation time and thus provide a better understanding of the determination of enamel thickness. Large samples of molar teeth will be studied to provide baseline data for the interpretation of fossil teeth. There is considerable controversy among anthropologists concerning the nature and pattern of dental development in living and fossil apes and humans. This study will establish the homology of enamel thickness categories, and similarities or differences in the developmental pathways that were followed to achieve enamel thickness in different hominoid primates. These results will be of relevance to any studies of enamel thickness and development in other primate groups.